Data-Driven Understanding of Grain-Boundary Roles in Self-Healing Perovskites

NON-TECHNICAL ABSTRACT

Modern technologies, including solar cells, light-emitting devices, and sensors, rely on advanced materials that can operate reliably over long periods. Unfortunately, some materials often develop microscopic defects and cracks during service, leading to performance degradation and shorter device lifetimes. One promising solution is the development of self-healing materials that can automatically repair damage, although external stimuli such as light or heat may be necessary to facility self-recovery, analogous to the way biological tissues heal after injury. Among these materials, metal halide perovskites have attracted tremendous attention because of their outstanding performance in next-generation optoelectronic devices. However, the healing process that occurs in perovskite materials is still not fully understood. This project will investigate how polymer additives help perovskite materials repair themselves by combining advanced computational modeling, data-driven techniques, and experimental characterization. The research will reveal how microscopic interactions within the perovskites influence defect repair, stability, and long-term performance, with the ultimate goal of providing new design principles for more reliable and energy-efficient optoelectronic devices while supporting U.S. leadership in sustainable materials innovation. Along with this research, an educational plan has been designed to (i) engage undergraduate and graduate students in interdisciplinary research, (ii) develop new STEM curricula, and (iii) expand outreach programs to K-12 students and the broader community. These integrated research and educational activities will help cultivate a highly skilled workforce while promoting public understanding of STEM.

TECHNICAL ABSTRACT

Self-healing perovskites offer a promising pathway toward durable optoelectronic materials by enabling autonomous repair of defects and cracks after damage. One widely used strategy to achieve self-healing behavior is the incorporation of healing agents into the perovskite matrix, among which functional polymers are particularly attractive. Owing to their large molecular size, polymer additives tend to preferentially segregate to the grain boundaries (GBs) in polycrystalline perovskite thin films. However, the fundamental roles of GBs and GB–polymer interactions in governing self-healing mechanisms remain poorly understood, limiting the rational design and full utilization of polymer-enabled self-healing perovskites. The overarching goal of this proposal is to elucidate how GB–polymer interactions control defect passivation, ion migration, carrier transport, and stress relaxation in self-healing perovskites. The central hypothesis is that these interactions are governed by local GB crystallography and polymer chemistry, leading to site-specific effects that can passivate defects, suppress ion migration, enhance carrier transport, and promote stress release. To test this hypothesis, the team will integrate first-principles calculations, machine learning, and experimental characterization to (i) investigate a broad spectrum of GB structures, (ii) quantify their interactions with selected functional polymers, and (iii) determine their effects on the transport, electrochemical, and mechanical properties of perovskite materials. The integrated educational plan emphasizes the development of highly skilled U.S. workforce with expertise in predictive modeling, materials design, and experimental characterization. Collectively, this project will advance the discovery of self-healing perovskite materials and contribute to sustainable energy technologies while preparing the next generation of materials scientists and engineers.